Island Institute Islesboro Geographic Information System (GIS) Technology Collaboration

ABSTRACT

Island Institute Islesboro GIS Technology Collaboration

This project proposes a three-year pilot project designed to study and then implement a community-integrated Geographic Information system with an island community in the Penobscot Bay region of Maine. The project will be developed and implemented in conjunction with community members in the school, in the local land trust and on municipal committees.

The project implements community integrated GIS as it transfers skills from GIS professionals to ordinary citizens to empower the community of Islesboro. A Major goal is to integrate GIS technology into the existing community through the school and the land trust and the islands' municipal committees. GIS skills and abilities will be transferred to the larger community by introducing GIS technology in practical day-to-day decision-making at the community level. The objective is to give Isleboro the tools, skills and resources necessary to access and utilize scientific data and information for the benefit of sustaining their community in the future. The efficacy of this approach will lead to replication of the project in other communities.